Design of Electro-Mechanical (Mechatronic) Systems An Integrated Inter-Departmental Curriculum

9354403 Rizzoni The principal goal of this project is to develop an innovative curriculum in Electro-Mechanical (Mechatronic) System Design. This innovative curriculum integrates electrical, electronic, mechanical, and computational engineering by introducing the innovative use of videos and computers into the classroom and laboratory. Emphasized is the use of a variety of CAD tools in engineering design and analysis. A realistic engineering problem setting is provided in the laboratory to enable the students to address design and experimental issues in engineering. The objectives are accomplished through an integrated curriculum, cross-listing many relevant EE and ME courses, and a Motion Control in Electro-Mechanical Systems Laboratory in which the students are exposed to the electrical, electronic, mechanical, and computational aspects of motion control and hybrid-electric vehicles. Students electing this curriculum receive a certificate of study in Electro-Mechanical System Design and complete their senior design projects using the facilities available in the Motion Control in Electro-Mechanical Systems Laboratory. Through this curriculum the undergraduate students identify creatively capstone design projects in electro-mechanical systems. The design projects are realized through the open use of the laboratory and with the participation of industrial sponsors who assist in defining projects. ***y